Research on Processing of Metal Matrix and Ceramic Matrix Composites

This research addresses the development of basic understanding of the processing of metal matrix composites. Continuous fiber reinforced metal matrix composites have extremely high specific strength and stiffness, and have potential use in many advanced systems. Finite-element analysis, model experiments, and mechanical behavior investigations will be used to develop process parameters and an understanding of the basic factors governing the reliable processing of oriented metal-matrix composites. The results are expected to provide a significant basis for the processing of this high-performance family of materials.